The Redwood Connection

The College of the Redwoods requests support from NSF to connect its Mendocino Coast Center in Fort Bragg, California to the Internet. This grant will be used to help the institution get access to the Internet. Pacific Internet, a local service provider, will provided the the lines used to access to the Internet. The Mendocino Coast Center needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general.